Catalytic Membrane Technology for the Conversion of Greenhouse Gases

Professor S. Ted Oyama will study the dry reforming of methane with carbon dixode to produce synthesis gas (carbon monoxide and hydrogen). This catalytic reaction will be run on membrane-supported Ni and W in the metallic, caribidic and phosphidic form. The CVD-modified Vycor and alumina inorganic membranes will provide additional driving force for the reaction by selective separation of hydrogen at high temperature. The project will involve catalyst development, membrane characterization and investigation of their selectivity to hydrogen, kinetics measurement at various high pressures, mechanistic investigation by isotopic substitution, and modeling of the catalytic membrane reactor system. The outcome of this research may impact the extent of use of natural gas as a chemical source, and provide a pathway for carbon dioxide remediation. This proposal is funded by the following program of the Chemical and Transport Systems Division: Kinetics, Catalysis and Molecular Processes; Process and Reaction Engineering; and Separation and Purification Processes.